Introduction of a Laser Spectroscopy Laboratory Course in Physical Chemistry

9451581 Bush We are introducing a laser spectroscopy laboratory course in Physical Chemistry in order to improve the chemistry curriculum and thereby significantly enhance the education and training of virtually all of our graduates. The equipment for laboratory improvement has been selected to maximize the number and variety of experiments that may be carried out in the course, and students are also developing undergraduate research projects which can be pursued using the same equipment.